Federal Cyber Service: Scholarship for Service

Norwich University, a National Security Agency Center of Academic Excellence, is awarded a National Science Foundation Federal Cyber Service: Scholarship for Service grant to establish scholarship monies that will encourage students to obtain a degree in Information Assurance studies. The scholarship will allow rising juniors to obtain their degree in Information Assurance competencies to help defend our federal cyber systems and protect the private sector infrastructure. Because of the breadth and scope of this program, it is strongly believed that students will graduate from Norwich University's Information Assurance program with the skills, background, and motivation to meet the growing national need for specialists in this critical area. At the end of their junior year, the students will be available for summer internships in IA with deployment to appropriate federal agencies. The students will return for their senior year and complete their major and minor areas of study. At the end of their senior year, students will participate in a one-week information security update program that will be run by the programs industry partners, who are national leaders in information security. They will then be available to enter the workforce for the selected federal agencies.